SSC: Summer Science Camp

The goals of the proposed program will be to increase the number of minorities entering SMET careers by providing a foundation for life-long interest in science and mathematics for at least 50 participants annually; and, to provide activities which encourage the participants to consider SMET as possible career choices. The specific objectives are to: motivate students to remain in school and interest them in studying the sciences and mathematics; to help students understand science and future scientific questions through hands-on, mind-on activities; help students become more self- reliant in their school work while raising their self-esteem; provide enriching learning experiences to improve the qualitative, quantitative and analytical skills of the participants and to show the importance of science, mathematics, and communication skills in our daily lives; expose students to a board range of participatory activities and to professionals in the area of science, math, engineering and computer science; offer students information and guidance in the career exploration process and the academic preparation needed for a variety of professions, especially potential math and science careers; heighten students' awareness of science and mathematics disciplines as potential career choices, including science teaching, encourage students through science participation, knowledge and attitude to take prerequisite courses for college majors in science and/or math; and, capture the attention and assistance of more parents by preparing them to support their children through actual involvement of the program's activities. The methodology will include providing academic enrichment in SMET during a 5-week Summer Science Camp and Academic Year Follow-Up Activities. During the summer, Classroom and laboratory activities in mathematics (including algebra), science (life and earth), computer literacy and scientific communications will be offered. Research methodology and career expl oration activities will also be included. Academic year follow-up activities will include an extension of the summer content/activities on Saturdays and participation in the South Carolina Middle/Elementary School Academy of Science (SCMESAS) activities. In this effort the College will join with the middle schools in Richland County School District One to establish SCMESAS clubs in their schools. The desires outcome for the program will be an increase in the number of minorities enrolling in SMET courses in both high school and college with a subsequent increase in both the program participants and their peers entering SMET careers.